Information Visualization Laboratory

This project supports an undergraduate laboratory for information visualization. It equips the laboratory with 6 workstations and high-speed high-resolution graphics subsystems as a part of a larger undertaking. It also provides for the development of courseware for a new course in static and dynamic information visualization techniques under an integrated multi-media format. Static information visualization is devoted to topics on color discourse, texture-, lightening-, shading-, volume-, and shape-visualization. Dynamic information is devoted to the time/space relationship of processes such as algorithm visualization, event simulation, study of motion, and process animation. Media integration addresses the integration of computer graphics, imagery graphics, and the video/compact disc media. Also addressed are applications of computer aided visual technology, visual communication, visual ergonomics, animation, and scene production. The award is being matched with a greater amount (216 percent) by the principal investigator's institution.